Organization of the 2000 Laser Applications to Chemical and Environmental Anaylsis Topical Meeting, February 11-14, 2000, Santa Fe, New Mexico

Support is provided to enable young investigators, including students, to attend the 2000 topical meeting on Laser Applications to Chemical and Environmental Analysis to be held February 11th - 14th in Santa Fe, NM.